Hypermedia Materials for Elementary Mathematics Teacher Education

Vanderbilt University seeks funds to develop and field-test new applications of videodisc and hypermedia technology for use in educating preservice teachers of elementary school mathematics. The project will build upon and extend work supported by NSF. The proposed areas of development include hypermedia cases, library materials, research environments, and prototype assessment materials. The materials will be tested at Vanderbilt and eleven institutions of higher education in Alabama which are already structured into a consortium for the project Validating the Use of Hypermedia in Elementary Mathematics Education, supported under the NSF project TPE-9053826. Cost sharing by Vanderbilt University is 11% of the total cost requested from NSF.